Travel Support for Math in Moscow Program

This grant provides the American Mathematical Society with funds to be used over three years to support mathematically talented U.S. undergraduates for a semester of study at the MATH in MOSCOW program of
the Independent University of Moscow. Funds will be used to underwrite approximately half of the typical cost for a semester of study in the program for ten undergraduate students per (academic) year. The Independent University of Moscow (IUM) is a small, elite institution of higher learning focusing primarily on mathematics. It was founded in 1991 at the initiative of a group of well-known Russian research mathematicians, who now comprise the Academic Council of the University. The faculty of the IUM has well-established connections with the research community in the U.S. and Europe. The costs to administer
this program are being fully absorbed by the AMS, and all the funds provide will be used to support the students.